Ordered Arrays of Magnetic Nanoparticles

Abstract 9800127 S. Majetich, Carnegie Mellon University The objective is to prepare magnetic nanoparticle arrays in nonmagnetic matrices, and measure the interaction magnetic effects for various nanoparticle shapes from spheres to rods. A self-assembly method will be used to create monodispersed nano-sized nonmagnetic arrays that are transformed to a magnetic phase after solidifying the surrounding liquid. A second approach will consist in coating the particles in order to control interparticle spacing. Iron oxides are selected as the prototype material. Various characterization methods will be used to measure magnetic coercivity, magnetization directions of individual particles, interparticle coupling with the Faucault Lorentz microscopy, and nanoparticle moments by magnetic force microscopy. Simple particle interaction models will be developed to interpret the experimental results. The proposed particle synthesis methods and the investigation of the interparticle forces will provide fundamental information for development of magnetic data storage equipment. ***